MRI: Acquisition of an Analytical Instrument for Biofuels Emissions Research

1039787
Soloiu

This MRI proposal requests funds to purchase a Horiba MEXA-1230PM particulate matter analyzer that will be used to study biofuel combustion products in a multidisciplinary research program. It will complement Georgia Southern’s commitment to renewable energy research and education, demonstrated by its spending over $400,000 to purchase test engines, dynamometers, and analytical instrumentation. While biofuel combustion is typically "cleaner" than that of petroleum, its products, including soot, remain an urgent problem. Support of this proposal will greatly expand Georgia Southern's ability to contribute new ideas and approaches to the fields of biofuel formulation, combustion, and emissions, while enhancing both undergraduate and Master of Science education and research experience. The requested instrument will be used by our faculty in engineering, combustion, controls, public health, and chemistry as well as qualified researchers throughout the region. Six faculty from the Allen E. Paulson College of Science and Technology, one from Jiann Ping Hsu College of Public Health, and three researchers from the Herty Advanced Materials Development Center helped to prepare this proposal.